The Northern Huasteca Project

The purpose of this project is to analyze and define the Huasteca region in light of new archaeological developments in other Mesoamerican regions. Among these are the increased archaeological activities in Central Mexico; developments in Veracruz with respect to the Olmec; the intensive and extensive studies in Oaxaca; and the great development of new cultural interpretations for the Maya region. Few studies have been done in this region since the 1920's. The investigator proposes to complete a survey of recorded and reported sites for a subsequent selection, testing and excavation. The testing or excavation of sites will locate those with preclassic components. He will attempt to relate the Huastec with the Maya culture through material remains and perhaps through the manifestations of belief systems or practices. The next step will be to analyze the changes in the Huastec as they become part of the central Mexican sphere of influence. An additional effort will be put forth to understand the relationship between Spaniards and Indians at the time of conquest and in the early colonial period. This analysis will be pursued from an archaeological perspective in an attempt to see how rapidly change occurred in this region.